Conference: "Bicarbonate, Chloride and Proton Tranport Systems; January 19-21, 1989; New York City, NY"

This conference, entitled "Bicarbonate, Chloride, and Proton Transport System" is an international basic science conference sponsored by the New York Academy of Sciences. The conference is focused on the roles of the movement of bicarbonate, chloride and hydrogen ions across and into cells in controlling cell acidity, volume and organ function and the manner by which these movements occur in animal and plant systems. The biophysics, physiology and molecular biology involved in these processes will be presented and discussed. The importance of these processes in maintaining acid and electrolyte homeostasis has been increasingly recognized, and this timely conference will provide a unique opportunity for the gathering of investigators who are working in diverse systems to exchange and present their work to one another. The recognition by animal physiologists of the general importance of anion transport processes is relatively recent compared to that of cations transport. This situation in part arises from the fact that cation transport was first found to be important in neural transmission, and because cations are technically more easily studied. As a result anion and proton transport were generally considered to occur secondarily to that of cation movement. Recent discoveries have emphasized the importance of anion transport as exemplified by the involvement of C1-conductive channels in cystic fibrosis, as well as ocular and gastro-intestinal tissues. Also in recent years, the involvement of C1-HCO3 exchange in the overall processes of gastric and renal acid excretion has received new attention, as well as the role of anion transport in cell volume regulation. Research in the area of anion and proton transport has also recently branched into the structural and molecular aspects of the transmembrane movement of these ions and several important advancements have been made in the 10 years. The intent of this conference is to provide a forum for researchers in the transmembrane, structural, enzymatic and transepithelial areas of anion and proton transport in both animals and plants. A previous conference on this subject in 1979 was successful and well attended, and we believe that in the past ten years, sufficient advances both in the technical and scientific areas have been made to warrant the presently proposed conference.